Mechanisms of Spontaneous and Induced Deletion

Major genetic rearrangements are at the basis of major biological processes and constitute a major class of disease related genetic events. This proposal is concerned with the origin of deletions, which are the most extensively studied rearrangements. Spontaneous deletions are explained by misalignment mutagenesis models, which postulate that during DNA replication single stranded regions can undergo slippage followed by interstrand mispairing between direct repeats or formation of hairpin structures between inverted repeats, but leave open the question of how these transient intermediates are resolved as deletions by enzymes for DNA metabolism. We know very little about deletions induced by mutagens and it is possible that many of them are untargeted, i.e. occur at sites not containing mutagenic lesions. The overall objective of this proposal is to gain a better understanding of the various factors responsible for spontaneous and induced deletions. Specific objectives are: (1) examine some novel sequences capable of stabilizing deletion intermediates, (2) extend earlier observations showing that induction of the SOS response can stimulate some deletions, (3) determine to what extent mutagen-induced deletions can be untargeted as the result of SOS induction, (4) attempt to recover deletion intermediates (5) analyze mutations which increase deletion frequency in the absence of the recA function. The experiments proposed are based on the use of preconstructed plasmids derived from pBR325 on which deletion of presequenced fragments within the EcoR1 site of the CAT (chloramphenicol acetyl transferase) gene can be measured as the frequency of Cms- --Cmr (chloramphenicol sensitive to resistant) revertants, and a variety of strains carrying mutations in SOS genes. This is a proposal to study the mechanisms by which genetics information is lost from the chromosomes of an organism, either spontaneously or as the result of environmental factors (such as chemicals). Virtually nothing is known about these mechanisms because they have been difficult to study. The proposed work makes use of methods newly developed by the P.I, which should shed new light on these mechanisms, Apart from its intrinsic scientific interest, loss of genetic information has many important medical consequences, among them genetic diseases, cancer, and possibly spontaneous abortion and birth defects.